Conference: Travel Grant for the 30th Annual International Conference on Research in Computational Molecular Biology (RECOMB 2026)

The field of computational biology is essential for advancing national health, prosperity, and welfare by driving innovation in medicine, agriculture, and biotechnology. This project supports U.S.-based student participation in the 30th Annual International Conference on Research in Computational Molecular Biology (RECOMB 2026). By providing travel fellowships to graduate and undergraduate students, the award ensures that the next generation of scientists can engage with global experts and cutting-edge research. This initiative seeks to immerse students in cutting-edge work, strengthen their research skills, and expand their professional networks, thereby amplifying the impact of their future contributions to science and society.

The goal of this award is to facilitate the professional development of ten students specializing in computational biology through travel support to RECOMB 2026 in Thessaloniki, Greece. The conference scope encompasses the intersection of mathematical, statistical, and biological sciences, featuring peer-reviewed presentations on theoretical advances in molecular biology. Selection for the fellowships is based on a merit-based process that prioritizes student authors of accepted research papers and posters, ensuring high-quality scientific exchange. Participating students will engage in keynote sessions and research presentations, allowing for the dissemination of new computational methods across institutions. The project aims to accelerate the research trajectories of the recipients by providing direct exposure to the latest algorithmic developments and fostering professional networks with established investigators in the field.